Reagentless Optical Sensor for Long-Term Measurement of Dissolved Oxygen in Seawater

This Small Business Innovation Research Phase I project addresses the need for stable sensors suitable for long-term measurement of dissolved oxygen in seawater. Measurement of the dissolved oxygen in seawater is critical to understanding mixing processes and oceanic circulation as well as for the description of water masses. At present there are no stable sensors suitable for long-term (multi-year) monitoring of dissolved oxygen. Random Technologies recognizes the need for stable long-term sensors and is proposing the development of a reagentless optical oxygen sensor to fill this need. During the Phase I effort a laboratory version of this dissolved oxygen measurement system will be demonstrated. Portable prototype instruments for field use will be developed during Phase II.